Conference: 13th International Conference on Hard and Electromagnetic Probes of High-Energy Nuclear Collisions

This award provides support for students and postdocs to attend the 13th International Conference on Hard and Electromagnetic Probes of High Energy Nuclear Collisions (“Hard Probes 2026”), devoted to the physics of strongly interacting nuclear matter at extreme energy densities. Highly energetic (“hard”) and electromagnetic probes offer the opportunity to study the exotic properties of the Quark Gluon Plasma with unprecedented precision. The Hard Probes Conference series is the main conference worldwide to discuss new experimental results and novel theoretical developments in this area. The 2026 edition of Hard Probes will come at a crucial time for the nuclear physics community to share the physics leading to the completion of the RHIC science mission. The physics of such hard probes is a major driver for future facilities planned or under construction such as the Electron-Ion Collider at RHIC.

The intent of conference is to enhance the direct exchange of scientific information among members of the community from both experiment and theory. In particular, the conference encourages participation of early career scientists by providing financial support and further training by a wide set of renowned lecturers.